CAREER: Structural Communication Complexity

The field of communication complexity is about situations where two
parties, call them Alice and Bob, each hold a separate piece of data,
and they wish to collaboratively solve some computational problem that
depends on both their inputs. How much will they need to communicate
back-and-forth to achieve their goal? The field encompasses both upper
bounds---i.e., the design of protocols that allow Alice and Bob to
succeed using only a small amount of communication---as well as lower
bounds---which show that no such efficient protocol exists for certain
problems (i.e., Alice and Bob will need to communicate many bits to
succeed). This serves as a natural model of distributed computing,
motivated by big data and cloud computing concerns. More generally, it
can be used to model any situation where flow of information between
different components of a system forms a bottleneck; for this reason,
communication complexity has applications to many other areas of
computer science. This project will develop deep technical tools to make
progress on several longstanding problems and central issues in
communication complexity and its various application areas. The unifying
theme of this project is the importation of insights and techniques from
structural complexity, which is the area of theoretical computer science
devoted to classifying problems according to their inherent
computational difficulty. The education component will address the
challenges of facilitating flow of ideas between theory and
applications, and transitioning students from coding to problem solving
to research.

One specific type of tool relevant to this project is "lifting
theorems", which relate communication complexity to the simpler model of
query complexity. The investigator will continue to develop and apply
such lifting theorems to address structural questions in communication
complexity and beyond. This project will: develop fundamentally new
lower bound techniques for powerful communication models, strengthen and
unify classic and widely-used results, clarify the delicate relationship
between communication and the amount of information Alice and Bob reveal
about their inputs, advance the understanding of computational problems
concerning communication complexity itself, and use structural insights
to deepen the connections with circuit complexity, proof complexity, and
data structures.